Mathematical Sciences: Statistics and Geometry

The multitudes of problems to be solved have the common theme of distributions on the sphere and statistical geometry. The specific problems include the following. Various estimation methods for distributions on spheres will be explored. These find many applications in physics and geology. New statistical methods will be developed for the case of "error in variables" viz. when both the observed and control variables have error in them. Connections between traveling salesman and clustering problems will be explored. The zeros of random complex polynomial will be explored via special sequences of random triangles.